Light-Induced Interactions Between Ultracold Atoms

This is a project to understand how atoms at ultracold temperatures interact with each other through both collisions and radiation. It will experimentally study several different aspects of the interaction: the release of violet radiation in collisions that include two-photon processes; the change in spin polarization of the particles as they transfer momentum in the collision; and the change in motion induced by the collision of an atom with an evanescent field. Results of the work impact other areas in AMO such as time standards and precision measurements.